Connecting Operator Algebra and Quantum Information Theory

Quantum Information Science is one of most intriguing challenges of the last and this century. The potential of quantum computing and quantum supported data science could include advances in material science and public health. Despite tremendous progress in the last two decades in experiments, the puzzle of harnessing the quantum potential is not solved. One of the tasks of fundamental research in quantum information theory is to discover the possibilities and limitations of the advantage of including quantum mechanics in computation and communication. Operator algebra theory and quantum information theory share common roots through the study of channels. Quantum channels describe the devices used to manipulate quantum states. Even the definition of states describing a quantum mechanical system relies on the work of von Neumann formalizing quantum mechanics. Techniques from von Neumann algebra theory will play a crucial role in the work of this project. Relying of the notion of entropy, also coined by von Neumann, this project will study limitations and possibilities of quantum heat engines. In this study, time, or more precisely time evolution of a quantum process, will be added to the statical picture of quantum states. Many quantum information devices rely on extreme low temperature for performing the new tasks. A more mathematical oriented study of the role of heat, will address the long overdue concerns on the financial implications of quantum computation for society. The project also includes training and mentoring graduate students in mathematics and physics.

The main goal of this project is to demonstrate that the combination of research in pure mathematics and quantum information science is a viable, interesting, and intellectually challenging model for mathematicians. The theory of heat engines is closely connected to properties of thermodynamics, hence well-motivated physically, but requires a deeper mathematical investigation. The theory of quasi-local operator algebras provides a sound background for studying diﬀerent phases of large quantum systems. Operator algebraic examples of producing phase transitions in infinite dimension, for example by adding a magnetic term to the Ising model, seem to predict a similar advantage on the quantum computational side. This research is heavily based on Lie algebra theory, a mathematical classic. Based on the recent advances on bootstrap axioms and connections to high energy physics and condensed matter, the PI will study entropic property of large quantum systems leading to a theory of entropic quantum information geometry. Mathematically the connection between finite dimensional and infinite dimensional systems is intriguing and opens the door for operator algebraic methods. Finally, the proposal also contains a purely operator algebraic topic on the study of so called q-gaussian algebras.